Engineering Undergraduate Student Designs To Aid The Disabled

The proposal is to fund 10 undergraduate engineering students yearly to design aids for specific disabled individuals. The grant will expose students to a rewarding real-world design experience, and should motivate them to choose a career in engineering design and research to aid the disabled.